Board on International Comparative Studies in Education

The Board on International Comparative Studies in Education contributes to a better understanding of national education policy issues by working to ensure that data from comparative studies in education are available and are of adequate quality for policy purposes and curriculum design. The board was established by the National Academy of Sciences (NAS)--National Research Council (NRC) in 1988 at the request of the National Center for Education Statistics (NCES) and the National Science Foundation (NSF). The purposes of the board are to (1) improve the scope, quality, and utilization of comparative education data in the United States; (2) serve as a forum for informed deliberation about the range of international education studies in which the United States participates; (3) promote institutional mechanisms and commitments to encourage cooperation in worthwhile studies by other nations; and (4) enhance infrastructure and research methodology, both nationally and globally. While board activity relevant to all of these responsibilities serves the policymakers and the education research community in the United States, the board's influence extends internationally through its activities related to the latter two purposes. Also included in this grant is funding for several international comparative studies, the largest amongst them is the Third International Mathematics and Science Study (TIMSS).